Committee on Science, Engineering, and Public Policy Core Activities

In 1961, the National Academy of Science (NAS) created a committee, that eventually evolved to become the Committee on Science, Engineering, and Public Policy (COSEPUP). COSEPUP was intended to assist the NAS President and Council in their roles of advising the government at the highest levels on policy matters related to U.S. science and technology. The NSF has supported COSEPUP from its onset. Formally, COSEPUP is charged with the responsibility to deliberate on initiatives for new studies in the area of science and technology policy, taking especially into account the concerns and requests of the President s Science Advisor, the Director of the NSF, the Chairman of the National Science Board, and the chairmen of key science and technology-related committees of the Congress . COSEPUP undertakes major independent studies of national issues in U.S. science and technology policy. In recent years, for example, it has conducted prominent studies on NSF s Science and Technology Centers, graduate education in science and engineering, policy goals for science and technology, and recruitment and retention of Presidential appointees. In addition, it has developed a number of guidance manuals on science and engineering for students and faculty on responsible conduct of research, careers in science and engineering, and mentoring of students in science and engineering. COSEPUP also hosts workshops and convocations to encourage dialogue on key science and technology policy issues such as the recent Convocation on Doctoral Science and Engineering Education which was cosponsored by many disciplinary societies and university organizations.